NSF Young Investigator

9457905 Xiao This project in atomic physics will initiate studies of atomic spectroscopy with quantum states of light, and of electromagnetically induced transparency with enhanced dispersion in multi-level atoms. ***